Topics in PDE's and Quasiconformal Mappings

DMS-9876881
Lewis

The aim of this project is to investigate further some problems
originating from my work on (a) parabolic and elliptic measure,
(b) quasiconformal mappings, and (c) regularity of PDE's. Under
(a) I would like to know when the Dirichlet Problem has a solution
for certain parabolic and elliptic PDE's with drag term. Given that
the Dirichlet problem for these PDE's has a solution, I would like
to know when the corresponding measures possess basic properties such
as a doubling property. As for (b), I would like to construct more
examples of domains which are quasiconformal to a sphere and for
which harmonic measure and n - 1 dimensional Hausdorff measure on
the boundary are equal. Finally under (c) I would like to know if
the techniques used to prove reverse Holder inequalities for solutions
to systems modeled on for the parabolic p Laplacian can be used on
other PDE's such as the Navier Stokes equation.

Many physical problems can be described in the language of
partial differential equations (PDE's). Well known examples of such
equations arising in the 19 th century are Laplace's equation,
the heat equation, the wave equation, Maxwell's equations, and
the Navier- Stokes' equation. Without question knowledge derived
from a theoretical study of these equations led to many fundamental
technological advances during the 19 th and 20 th centuries.
Three questions often asked by those who study PDE's is (a) does
there exist a solution, (b) is it unique and (c) does it possess
nice properites or is it regular? As for (a) and (b) one is often
concerned with so called boundary values or boundary conditions for
a solution in the domain of existence. So called overdetermined boundary
value problems have no solution whereas such classical problems
as the Dirichlet and Neumann problems have solutions if the
boundary of the given domain and the boundary conditions are
sufficiently nice (smooth). My work is concerned with how much
one can relax these assumptions and still get meaningful theorems.
For example, during the last quarter century, many classical
theorems for the Laplacian in smooth domains have been shown to
hold in a class of rough domains called Lipschitz or sawtooth
domains. My coauthors and I have obtained the analogue of
Lipschitz domains for the heat equation. Another avenue of
investigation has been to consider questions (a)-(c) in a half
space for rough parabolic PDE's. My work provides a model for
certain free boundary problems such as ice melting (the Stefan problem).